Earth Sciences Postdoctoral Research Fellowship Award

The Fellow will examine the relationships between extreme hydrologic events on continents and large-scale atmospheric and oceanic conditions in both modern and paleoclimatic records. Studies will determine any relationships of El Nino/Southern Hemisphere events (or the Asian Monsoon) on global weather and climate. The Fellow will spend her fellowship tenure at the Pennsylvania State University.